Student Travel Support for NuFact09 Workshop; Chicago, IL

This award provides partial support for five students and postdocs to participate in the International Workshops on Neutrino Factories, Superbeams and Beta Beams (NuFact09), Chicago, Illinois, July 20-25, 2009. The NuFact workshop series is the only conference series dedicated to the future of the field of neutrino oscillations and presents a unique opportunity for young scientists to participate in discussions with world experts in this cutting edge research.